Graphical Approaches to Modeling High-Dimensional Data

This research involves theoretical and applied research on learning and representation of high-
dimensional data. The term high dimensionality refers to the property that the number of variables
or “unknowns” is typically much larger than the number of observations available at hand. A key
challenge is being able to represent and learn such phenomena with sample and computational
requirements scaling favorably in the number of dimensions. This project addresses these challenges
through a graphical approach by exploiting the inherent graphical structure present in many large
data-sets.

This research considers modeling high-dimensional data through probabilistic graphical models,
also known as Markov random fields. An important research thrust of this proposal is to develop
novel algorithms for learning and inference under the framework of graphical models. Another
important thrust of this proposal is to develop efficient scalable models for representing high-
dimensional data beyond the traditional framework of graphical models. This research establishes
strong theoretical guarantees for the developed methods, as well as applies them to real data in
various domains, including genetic and financial data, and data from large online social networks
such as Facebook and Twitter.